Breaking the Maya Code

Night Fire Films is producing a one-hour show for PBS titled "Breaking the Maya Code," based on the book by Dr. Michael D. Coe. "Breaking the Maya Code" will explore the history of the decipherment of the Maya hieroglyphic script. The 400-year scientific detective story, climaxing in the past thirty years, will be told through footage shot at key locations in Central America, Europe and the United States, together with dramatizations, animation and graphics; archival materials; and interviews with major participants in the decipherment. An outreach campaign, including an extensive web site, will enhance the television viewing experience as well as promote further STEM learning.

The program will be produced and directed by David Lebrun; Nicolas Noxon serves as Executive Producer. Michael Coe will serve the project as Principal Advisor, along with an extensive board of advisors of ethnographers, epigraphers, archaeologists, historians, iconographers and others. Multimedia Research will conduct formative evaluation of the program; Knight-Williams Research will conduct summative evaluation of the project. The National Endowment for the Humanities has granted $550,000 toward this project.